Capacity and Flexibility Assessment of Transportation Infrastructure Systems

This research seeks to answer the question of how to measure the capacity
and flexibility of a transportation system, considering uncertainty in
system performance and traffic. The emphasis is on the term system, for
methods already exist to measure the capacity of individual links and nodes
of a network in terms of volume-delay functions. But as we have learned
with the recent capacity problems of U.S. freight railroads, capacity is
dependent on many other system elements, including the fleet, labor, and
energy, among others. And information technology -- vehicle and cargo
tracking systems, mobile communications, real-time movement control, etc.--
can increase fleet productivity and shift link volume-delay curves.

This research will develop overall metrics for system capacity. These are
intended to address questions of the maximum amount of traffic a system can
accommodate, and the flexibility of the system in accommodating different
mixes of traffic. Such mixes include changes in: spatial patterns resulting
from shifts in national or international trade patterns, the mix of
commodities carried, and speed or other level of service features required
by industry. We term these different quantities and mixes of commodities
and related features "traffic scenarios."

The methods developed are intended to address fundamental questions that
face those responsible for providing transportation infrastructure,
including: Is the system capable of accommodating an expected future
traffic scenario? If not, what are the bottlenecks? How flexible is the
current system in accommodating various traffic scenarios that might arise?
How adequate and flexible will the system be given planned investments and
other changes? Traditional transportation models have focused on estimating
the performance-- cost and level of service--of a given system with given
traffic scenario, and generally do not consider uncertainty. This research
addresses different but related questions, namely, the ability of a system
to accommodate various possible traffic scenarios. Our results should
provide improved methods by which private and public sector infrastructure
mangers can assess the state of their systems and also evaluate
improvements resulting from investments and operational changes.

In undertaking this research, we will build upon existing models of the
system, but structure these into an optimization formulation that enables
us to posit different measures of capacity and flexibility. One version
will be deterministic. But our goal is to develop a stochastic model that
will take into account stochastic variations in such features as link
performance and the quantity and mix of different commodities over time.
Thus we also intend to develop a Monte Carlo simulation version of the
model, which will provide a basis for developing a combined optimization
and stochastic approach to the problem. We expect to use current capacity
problems in the freight transportation system as examples and tests of the
methodology that we develop.

This award is made under the Exploratory Research on Engineering the
Transport Industries (ETI) program solicitation.